Mathematical Sciences: K2 of Algebraic Curves and Special Values of L-Functions

This grant supports Dr. R. Ross as a post-doctoral associate of Professor R. Guralnick. Dr. Ross will investigate the Beilinson conjectures that relate the algebraic K-theory to the behavior of the Hasse-Weil L-function at s=0. This project falls into the general area of arithmetic geometry -a subject that blends two of the oldest areas of mathematics: number theory and geometry. This combination has proved extraordinarily fruitful - having recently solved problems that withstood generations. Among its many consequences are new error correcting codes. Such codes are essential for both modern computers (hard disks) and compact disks.